Research Experiences for Undergraduates in Chemistry at the University of Nevada

Dr. John H. Frederick and other members of the Chemistry Department of the University of Nevada at Reno are being supported for a new Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-97, twelve undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects span the areas of inorganic, organic, physical, and theoretical chemistry. Building on two years as a self-funded undergraduate research program, the REU site will feature a nation-wide recruiting effort particularly targeting talented students from small colleges with no research opportunities.